Commonwealth Excellence in Science Teaching Alliance (CESTA)

9355732 Schroder This project of the Franklin Institute is based on a four-year model that will improve inquiry-based science teaching throughout Pennsylvania by establishing a statewide cadre of middle school teacher leaders. The Commonwealth Excellence in Science Teaching Alliance (CESTA2) will provide these 120 teachers with a series of intensive, professional development opportunities and technical support that will enable them to: improve their knowledge of science content areas; apply science to real-world situations; strengthen their ability to facilitate inquiry-based science learning; and develop leadership skills for the improvement of middle school science education. Teams of two to three teachers from each school will first focus on changing the teaching of science in their building and then provide leadership to their entire school district. ***